Representation Theoretical Methods in the Theory of Special Functions

This project is in two separate major research areas. The general
Theory of m-Quasi-invariants and the Theory of Macdonald Polynomials.
m-Quasi-invariants originally arose in the study of particle dynamics
but have emerged as a truly fascinating Algebraic Combinatorial
subject. For each Coxeter Group G there is an associated one parameter
family of subspaces which interpolates between the ordinary polynomial
ring and the ring of G-invariants. The m-Quasi-Invariants of $G$ are
simply polynomials which, upon the action of the difference operator
corresponding to a reflecting hyperplane of G, they produce a factor that
is divisible by the equation of the reflecting hyperplane raised to the
power 2m+1. This theory has been extensively developped, from the
algebraic point of view, in fundamental papers by Feigin-Veselov, and
Felder-Veselov, and culminated in certain conjectures which were proved
by Etingov-Ginsburg in 2002. Jointly with N. Wallach the PI discovered
that several constructs associated to $m$-quasi-invariants,
such as the associated Baker-Achieser function, encode some truly
remarkable combinatorial properties of the corresponding Coxeter group.
The present project is to explore the theory from the combinatorial
point of view. The early successes obtained in the study of the simplest
cases of the dihedral groups strongly suggest that such a study should be
conducive to significant discoveries in various areas of Mathematics
ranging from Combinatorics, Representation Theory and the Theory of
special functions.

Since its 1988 discovery, the Macdonald symmetric function basis has
progressively emerged as a central element in the connection between
Representation Theory and the Theory of Symmetric Functions.
After more than a decade of research in the Theory of Macdonald
polynomials, the PI, M. Haiman and collaborators have been led to a
variety of conjectures in Representation Theory, Algebraic Geometry,
Combinatorics and Symmetric Function Theory. Efforts in proving these
conjectures have yielded fundamental facts and methods in each of these
areas. Recently J. Haglund discovered and in collaboration with Haiman and
Loehr proved a remarkable purely combinatorial formula for a suitably
modified family of Macdonald polynomials. This discovery opens up a
variety of research problems involving some of the conjectures
which up to quite recently appeared inaccesible. The Pi plans to dedidcate
a substantial portion of the projected research effort in this area in
collaboration with his PhD students.

The proposed work, involves extensive computer explorations and
transfer of information across several mathematical boundaries, from
Representation Theory to the Theory Special Functions and then to
Combinatorics. These transfers provide an invaluable vehicle of discovery,
since results and mechanisms which may be quite obvious in one of these
areas often translate in highly non trivial and unexpected facts in one
of the other areas. It should be mentioned that symbolic manipulation
software such as MAPLE and MATHEMATICA combined with the present
generation of fast processors have literally transformed many branches
of mathematics into experimental sciences. Moreover computer data can be
successfully used not only in the discovery of results but also in the
construction of proof. The two basic projects that are the focus of the
planned research are also highly suitable for the training of young
researchers and the opportunity that it provides them to discover and
experience the manner in which research can be carried out in the 21st
century. Thus all the research problems created by this project
are invariably brought in the the class room to be shared with students
and collaborators.